Mechanism of Egg Activation

A protein fraction isolated from Urechis sperm acrosomes has been shown to activate eggs, causing electrical responses like the fertilization potential of sperm, as well as morphological changes typical of fertilization. Some peptide fragments from thermolysin digests of the protein fraction retain ability to activate eggs. Proposed experiments includes purification and sequence determination of the peptide(s) which activate eggs, and the attempt to identify with which components ("receptors") of the egg plasma membrane they interact. Of interest is whether they might interact directly with the Na channels responsible for the fertilization potential; reconstitution experiments will be directed towards this question. A model for the triggering of the initial events in egg activation without second messenger system is proposed and some aspects of this model will be tested (e.g. Do increases in intracellular pH and pCa occur at fertilization in Urechis? Are such increases required for activation? Can fertilization potentials occur when intracellular Ca is buffered to low levels?) Whether isolated sperm surface components activate eggs in other species, as well as some aspects of the proposed model will also be tested with oyster gametes. %%% This work addresses the question of how sperm interact with the egg surface to initiate development (activation). Even prior to sperm entry into the egg, a complex series of events are triggered in the egg by that contact that mark the beginning of the development of the organism.